Gromov-Witten invariants and symplectic reduction

Abstract

Award: DMS-0604705
Principal Investigator: Alexander Givental

Gromov -- Witten invariants characterize global properties of
phase spaces in Hamiltonian mechanics. It is our understanding
that Gromov--Witten theory has entered a very productive period
of its development. It is about to become a part of a more
general framework based on ideas of conformal field theory. Many
key outstanding problems of the theory such as, e.g. Virasoro
conjecture, or Witten's W_n-gravity conjecture are likely to
get either resolved on the basis of this framework or at least
advanced to a substantial degree. Respectively, we are planning
to continue our study of GW-invariants, their axiomatic
structure, their generalizations, their relationships with
integrable systems and symplectic field theory, methods of their
computation including those associated with the mirror
conjecture, and try to utilize the advantages that may come from
conformal field theory. A particular problem that gave the
proposal its name is a long-standing conjecture about the
behavior of Gromov-Witten invariants under symplectic reduction
of target spaces by circle actions.

From a more general prospective, problems we deal with in our
research lie on the crossroad of two major pathways in
mathematics of the last two centuries. One of them is the
in-depth pursuit of the intricate properties of algebraic curves
--- in the form inherited from works of Gauss, Abel, Jacobi,
Riemann, Klein and Poincare. The other is the broad conceptual
landscaping of mathematical physics dictated by the progress of
classical and quantum mechanics and often associated with the
names of Hamilton, Maxwell, Gibbs, Poincare, Hilbert, Einstein
and Weyl. It is string theory that in the search for the
ultimate laws of nature places algebraic curves in the center of
the modern landscape of fundamental physics, and generates new
mathematical questions and points out plausible answers with an
amazing pace and persistence. Some of the problems we work on
are motivated by such questions, some others hopefully provide
the answers that string theory did not really anticipate.